CRI: IAD: Accelerator-Based High-Performance Computing

Commodity processors are highly programmable, but their need to support general purpose computation limits both peak and sustained performance. Such observations have motivated the use of "accelerator" boards, which are co-processing elements that interface with the host server through a standard hardware bus such as PCI-Express but have their own computational engine and typically their own memory as well. Unlike the main processor, the accelerator does not support general applications; instead, its hardware and software is tuned for only specific types of computations. Accelerators can offload the most demanding parts of an application from the host processor, speeding up the desired computation using their specialized resources. This improved performance enables various forms of high-performance computing (HPC), but comes at a high cost in programmability.

This research targets high-performance computing research using PC-based clusters for cost and scalability combined with accelerators for high performance. The Purdue Everest project encompasses several related efforts in achieving high performance, low power consumption, and high programmability for highly heterogeneous systems. Acquiring a 30-node Gigabit Ethernet-based cluster of multicore PC-based workstations equipped with various accelerator boards (e.g., GPU, Cell, FPGA, Crypto) will enable research into effective and highly-programmable use of accelerator-based clusters. Supporting multiple accelerators per node allows applications to use different accelerator boards in different phases. This cluster also allows fair apples-to-apples comparisons of different accelerators by keeping the other system factors constant. This research also investigates the use of multiple concurrency domains, with parallelism across the cluster, across the cores in a single node, among the host processors and accelerators in a single node, and across the processing elements of a given accelerator.